Volcanoes and Crustal Construction at the Reykjanes Ridge

ABSTRACT: 9224738, PI-Smith: The PI will test whether the effects of Iceland hot spot are decoupled from the processes that build the axial topography and thus shallow crust at Reykjanes Ridge, or whether the hot spot produces an observable morphological signature at the axis. She will use hydroweep multibeam cum TOBI deep tow data to investigate the characteristics of volcano morphology in three areas of the axis of Reykjanes Ridge.